Some Problems in Applied Nonlinear Partial Differential Equations

The purpose of the project is to probe the dissipation
mechanism in viscous approximation of multidimensional compressible
potential flow by studying the regularity property, positivity of density,
and dynamics of convective singularity surfaces, to justify the relation
between variety of plate theories and three dimensional elasticity theory by
deriving the asymptotic limit of three dimensional nonlinear elasticity,
to deepen the understanding of optimal transport mechanism in
non-turbulent semi-geostrophic equations, to investigate evolution of
interface in multi-phase crystal growth in material science, stochastic
solutions of Hamilton-Jacobi equations which model many interesting
physical processes such as front propagation in combustion.
Rigorous mathematics in the study of the nonlinear partial
differential equtions addressed in the project make it possible both to
conduct stable numerical computation in, and to understand the qualitative
features of the phenomena addressed above. One of our objectives is to
study viscous oompressible potential flow and semi-geostrophic flow. The
advance in the knowledge of global large solutions of mathematical
equations has important impact on our fundamental understanding of air
flow. The second objective is to analyze the front propagation of crystal
growth and thin-film blistering in the semiconducting materials from which
computing devices are manufactured. The third objective of this project is
the training of graduate students and postdoctoral fellows in the
mathematical analysis of applied problems.